Purchase of a 400 MHz NMR Spectrometer

This award from the Chemistry Research Instrumentation Program will assist the Department of Chemistry at Bowling Green University in the purchase of a 400 MHz, multinuclear, nuclear magnetic resonance (NMR) spectrometer. This new instrumentation will enhance greatly research in a number of areas including the following: 1) Electron-transfer across artificial B-sheets, 2) Allosteric regulation of water soluble receptors, 3) NMR studies of the structures of branched nucleic acids, 4) Photosensitized energy and electron transfer reactions in surfactant bilayers on colloidal inorganic supports, 5) NMR studies of rapidly polymerizing multifunctional monors. %%% A nuclear magnetic resonance (NMR) spectrometer is used to obtain information about molecular structure (what types of carbon and/or hydrogen atoms are present, what are the relative number of each type of atoms and how are they connected to one another in the molecule) and molecular dynamics (how rapidly are the various parts of the moleule moving. This instrument is essential for any meaningful, modern synthetic chemistry research program.